Seminar on Stochastic Processes 2004

0341933
Burdzy
The 2004 Seminar on Stochastic Processes will be held at the University of British Columbia from May 22 to 24, 2004. The seminars have become one of the most important regular seminar series for probabilists. They attract and bring together an active group of eminent researchers and young specialists in probability and stochastic processes. This award will provide travel support for US participants. The funds will be used primarily for women and junior researchers.